International Conference on Intelligent System Applications to Power Systems (ISAP'96), Orlando, Florida January 28 - February 2, l996

9521636 Mohammed The award is for the International Conference on Intelligent System Applications to Power Systems (ISAP), Jan. 28-Feb. 2, 1996, Orlando, Florida. This conference is concerned with the newest research and development on intelligent systems, application to power systems, including knowledge-based systems, neural networks, fuzzy logic, and machine learning. The conference is a prestigious one which is attended by key researchers in the field from 20-30 countries. NSF and EPRI supported previous ISAPs. The conference has a good balance between industry and university participants - about half of the last ISAP was from industry. Therefore, it is an important forum for academic researchers to develop collaboration with the industry. This conference is also multi-disciplinary since the diverse fields of intelligent systems and power systems are involved. ***